Hall of Earth and Planetary Exploration

9627181 Hannibal The Cleveland Museum of Natural History will develop an exhibit that integrates earth sciences and planetary geology. Currently titled "The Hall of Earth and Planetary Exploration" this 8700 sq. ft. exhibit will consist of a series of ten sections, each one focusing on a different theme including "The Big Bang", "Plate Tectonics", "Earthquakes and Volcanoes", "Ores and Mining", and the like. The goals are to instill curiosity about the Earth and planetary sciences and their interrelationships, to invite deeper exploration into scientific information and processes, to improve general science literacy by organizing the information into comprehensible themes, and to present an exhibit that is relevant to the daily lives of the general public. Visitors leaving the exhibit should know about the uniqueness of the earth with its moving continents, liquid water and living beings. They will also have some sense of the new scientific knowledge about the universe and the solar system and have their desire piqued to explore these topics further. The exhibit will have a number of complementary components including brochures, an expanded docent program, scheduled demonstrations and lectures by museum staff, devices for physically disabled, teacher guides and workshops, and traveling kits for schools. The exhibit goals and complementary activities align with Cleveland's Urban Systemic Initiative. The exhibit is scheduled to open late in 1997.